Request for support of the 2004 International Symposium on Multiparticle Dynamics

The proposal requests funding for partial support for the International Symposium on Multiparticle Dynamics (ISMD) to be held on the campus of the Sonoma State University July 27 - August 1, 2004. This will be the 34th in the series and the main topics for this symposium will be hadronic physics at electron-positron, electron-proton and hadron-hadron colliders, heavy ion physics and particle astrophysics.

The funds will be used to support students and postdocs and to help in the costs of disseminating scientific information such as publishing the proceedings.